Support for U.S. Participation in the 2013 Canadian-American-Mexican Graduate Student Physics Conference (CAM2013); Waterloo, Canada; August 15 - 18, 2013

This award provides support to the American Physical Society (APS) for conference planning and student travel to participate in the joint Canadian, US, and Mexican physical societies' graduate student conference (CAM2013), to be hosted by the University of Waterloo in Waterloo, Canada, from August 15-18, 2013. The scientific program will include plenary talks by invited scientists in physics sub-disciplines such as Quantum Computing, Particle and Accelerator Physics, Theoretical Physics, Earth and Atmospheric Physics, Atomic/Molecular Physics and Material Physics. The plenary sessions will be followed by contributed talks from the students. There will be two panel discussions titled "Collaborating Across Borders," and "Doing Physics in Times of Austerity," highlighting CAM2013's goal to foster international physics collaboration. A student poster session will round out the scientific program. All student participants will present their research in either a contributed talk or poster session.

By bringing together scientists and students in an informal setting, the conference will also enable students to explore and discuss career options available to young physicists. Through special topical and technical sessions, students will have the opportunity to gain a broader view of physics beyond their own classrooms and research laboratories. The meeting will generate scientific exchange among the student participants, promote international collaborations among young scientists within the North American continent, expose graduate students to sub-disciplines in physics beyond their individual research areas, and promote interdisciplinary research within the sub-disciplines. The meeting's organization is carried out by the students. Overall, it will provide excellent training for next generation of researchers in the U.S.